Electromagnetic Probes of Fundamental Physics, October 16-21, 2001

This award will enable junior investigators to attend the school,
"Electromagnetic Probes of Fundamental Physics," to be held at the
Ettore Majorana Center in Erice, Sicily, on October 16-21, 2001.
The school will cover a wide variety of topics spanning, and
crossing, the fields of nuclear and particle physics, including both
quantum chromodynamics and quantum electrodynamics, the physics of strong fields, and the experimental promise of collider
laboratories.